Cortical Control of Eye Movements

9319280 Keating This is a study to find out about how the brain controls the movement of our eyes during voluntary visually guided tracking of a moving target. The experiments in this study are designed to determine what role a part of the forebrain called the frontal eye field pursuit area plays in the control of these smooth pursuit movements of the eyes. To do this, parts of the forebrain will be inactivated by either cooling or anesthesia and the effects on visually guided tracking movements measured. The changes in the eye movements that result from inactivation will be compared to some of the different scientific models of how eye movements are controlled. The work will make significant contributions to our understanding of the frontal eye fields in the control of voluntary eye movements.